8th International Congress on Nitrogen Fixation, May 20-26, 1990 in Knoxville, Tennessee

This action provides partial support for the 8th International Congress on Nitrogen Fixation. Its theme is "Achievements and Objectives in Nitrogen fixation." The Congress deals with the process of nitrogen fixation. This occurs either by the industrial Haber-Bosch process or through biological nitrogen fixation mediated by the nitrogenase enzyme complex. Such biological nitrogen fixation is found to occur in free-living organisms (such as Klebsiella) or in symbiotic associations (usually with plants such as legumes or ferns). The Congress thus integrates scientists from many different disciplines. Research into processes of nitrogen fixation involves biological chemistry, biochemistry, genetics, microbiology, plant breeding, molecular biology, ecology and forestry. Scientists from different organizations representing academia, industry and government are expected to attend. Past congresses attracted around 600 participants with a slight upward trend in overall attendance. The Congress is planned to be integrative and forward looking. Both oral and poster sessions are scheduled. Special review and integrative lectures are planned as are provocative issue workshops.